A Visual Supercomputing Facility for Rapid Environmental Assessment

9871100 Wheless This Major Research Instrumentation award to Old Dominion University in Virginia provides a high performance multi-processor computer for modeling and visualization in the ocean sciences. It will be particularly used in research on Chesapeake Bay estuarine dynamics and in various physical and biological oceanography modeling studies. The computer will be used in courses for both graduate and undergraduate students in marine sciences, and by graduate students in research projects. The project is supported by the Division of Ocean Sciences at NSF. Old Dominion University will provide cost-share support for more than 30% of total project costs. ***